RI: Small: Scalable Roadmap-Based Methods for Simulating and Controlling Behaviors of Interacting Groups: from Robot Swarms to Crowd Control

Simulating and controlling communities of characters that can
interact with each other and their environment, and dynamically
react to changes, is a challenging problem with many important
applications ranging from homeland security (e.g., simulation
of disaster scenarios and responses), to civil crowd control
(e.g., planning exit strategies for sporting events), to
education and training (e.g., providing immersive museum exhibits
and training systems). While there are existing methods that
attempt to address the simulation aspect, there is a lack of
methods that support interaction of multiple types/groups of
agents and little work has been done on the control or steering
aspect.

This work aims to address these challenges by integrating
roadmap-based planning with agent-based modeling. This hybrid
approach enables the development of methodology for modeling group
interactions which are also influenced by constraints imposed by
the environment (e.g., wide or narrow corridors) and techniques,
including interfaces that enable planning and experimentation, that
can scale to large numbers of agents. The results of this work will
be shared with the community via publications and open source
software. An anticipated outcome of this research is a tool for
simulation and control of large crowds at major events (e.g.,
sporting events, political rallies, emergency evacuations of a
building, region, or city). This could allow emergency response
planners to investigate the crowd response when officials are placed
in particular positions, or architects to study how evacuation times
are affected by widening or narrowing corridors.